Collaborative Research: Quantum-enhanced Interferometry Enabled by Advances in Ultra-coherent Micromechanical Oscillators

Advances in precision measurement are enabling scientists to explore how the laws of physics operate at their most fundamental level and are driving new technologies for sensing extremely small forces and motions. This project addresses longstanding challenges in studying how relatively large or "macroscopic" objects behave under the rules of quantum physics, where minute disturbances from their surroundings limit performance. By developing new ways to reduce these disturbances and improve measurement sensitivity, the work will advance our understanding of how quantum behavior transitions to the classical world and will enable ultra-sensitive detection techniques with applications in gravitational-wave observation and precision measurement. The research supports the national interest by promoting the progress of science and strengthening U.S. leadership in advanced manufacturing and semiconductor technologies through the development of new materials, fabrication methods, and device architectures at the micro- and nanoscale.

The technical effort focuses on the development of quantum-limited interferometers enabled by ultra-coherent optomechanical resonators with large modal mass, low resonance frequency, and long-lived mechanical excitations. This regime is directly relevant to gravitational-wave detectors including LIGO, Virgo, and KAGRA, where quantum radiation pressure noise and thermal noise limit sensitivity. Crystalline micromirrors based on epitaxial GaAs/AlGaAs heterostructures will be engineered and integrated with low-loss materials using advanced microfabrication and direct bonding techniques. Together, these approaches enable the realization of microresonators with improved mechanical quality factors and reduced optical and elastic losses, establishing a new platform for exploring quantum-limited measurement and decoherence in macroscopic systems. Strategies include surface passivation of compound semiconductor materials and the implementation of alternative low-loss support materials (e.g., single-crystal silicon carbide and sapphire) to mitigate surface-driven dissipation. Optimized devices will be incorporated into high-performance optical cavities to realize enhanced quantum sensing platforms capable of accessing regimes relevant to gravitational interactions and decoherence studies. The work advances state-of-the-art heterogeneous integration approaches central to advanced manufacturing and next-generation semiconductor systems, while also contributing enabling technologies with potential relevance to quantum information science.